Enhancing State Implementation of College and Career Ready Standards in Mathematics

The Council of Chief State School Officers (CCSSO) is providing technical assistance to key leaders in state education agencies (SEAs) to: 1) build SEA leaders' knowledge about effective mathematical professional development research; 2) deepen their understanding about necessary supports and structures that should be in place at the SEA and district level to scale up reform efforts needed to successfully implement the new college- and career-readiness standards; and 3) enable SEA leaders to incorporate what they learn and analyze, with the help of experts and peers, their existing mathematics college- and career-readiness standards implementation plans to ensure their plans are reflective of the research and best practice.

To reach these goals, CCSSO is inviting two key leaders from each state to a national meeting in the Washington, DC area where they will interact with and receive feedback from national mathematics education experts and peers on how to strengthen, revise and refine their standards implementation plans. The project is guided by an advisory group consisting of a broad range of experts in mathematics, mathematics research and mathematics practice. The project is creating a tool that will allow state leaders to evaluate the quality of their implementation plans based on research and promising practices. State teams have access to the experts and CCSSO personnel following the national meeting as the teams refine their implementation plans.